Regulation of Diurnal Carbohydrate Reserves and Translocation

Diurnal carbohydrate reserves provide leaves with carbon for export at night and during times of low photosynthesis, thereby maintaining an uninterrupted supply of carbon to non- photosynthesizing plant structures for growth, storage and metabolism. In some plants, like sugar beet and soybean, the diurnal reserve takes the form of starch, while in other plants, like fava bean and spinach, sucrose accumulates. The objectives of our program are to identify systematically (1) how carbon apportionment to sucrose and starch and of export together are regulated in a way that furnishes a diurnal carbohydrate reserve to leaves and regulates the current rate of export throughout the day- night cycle and (2) how photosynthetic carbon assimilation, carbon allocation and export interact when export is restricted or photosynthesis is increased, both in plants that accumulate sucrose and those that do not. We will measure changes in export rates, enzyme activities and metabolite levels in leaves of the two types of plants when carbon allocation is changed by extending the day or shortening the previous night. The ways in which restricting export by chilling-induced slowing of metabolism in the receiving organs or of increasing photosynthesis by raising CO2 affects photosynthesis and carbohydrate accumulation will be compared in sucrose-storing and starch storing plants.